U.S.- France Cooperative Research: Experimental Study of Two-Dimensional Turbulence

*** 9603361 Goldburg This three-year award for U.S.-France cooperative research in condensed matter physics involves the research groups of Walter Goldburg at the University of Pittsburgh and H. Kellay at the University of Bordeaux I. The award provides travel support and living expenses to Dr. Goldburg, his colleague, X.L. Wu, and a graduate student. The objective of the research is to investigate the statistical properties of the vorticity field in two dimensional (2D) turbulence flow. The U.S. investigators bring to this collaboration expertise in turbulence studies. This is complemented by the French experimental effort in thermodynamics and phase behavior of systems. The collaboration will advance understanding of two dimensional turbulence. ***